Theoretical Stereochemistry

The Organic Dynamics Program supports Professor Kurt Mislow at Princeton University for his studies of theoretical stereochemistry. Professor Mislow addresses a number of basic questions in stereochemistry by use of both non-numerical and computational methods, with special emphasis on topological aspects. An algorithm will be developed to implement a measure of topological chirality which is based on the least number of cut-and-paste operations that relate a chiral construct to the nearest achiral one. The Protein Data Bank will be explored, specifically to correlate biological function with a sense of topological chirality of non-heme iron-sulfur proteins, and, more generally, to search for the presence of additional knots and links in protein structures. The existence of flype groups, related by operations which transform one knot or link projection into another, will be assayed. In conjunction with a study of the rotatory power of knots as a function of conformation, the relative stabilities of knotted hydrocarbon chains will be computed in order to determine their dependence on chain size and number of crossings. Professor Kurt Mislow's studies in the Department of Chemistry at Princeton University address the often-intriguing issues presented by molecules displaying unusual three-dimensional structures resulting from the way in which the component atoms making up the molecules are interconnected. Molecules displaying the property of chirality, whereby mirror image forms of a molecule are not identical but rather are related as a right hand is to a left, are analyzed, providing a quantitative measure of chirality. Still more unusual molecular topologies, including molecules containing knotted or inter-linked chains, are also studied. Far from esoteric, these studies bear direct relevance to biological molecules such as proteins and nucleic acids, structural analysis of which has revealed the possibility of naturally-occurring knotted and linked structures. In addition to providing insights into these biological systems, theoretical analyses of non-trivial molecular topologies will prompt the preparative chemical community to prepare real molecules displaying these unusual topologies.